ITR: Static and Dynamic Techniques for Latency Hiding in Data-Intensive Applications

Many of today's performance-critical applications involve manipulating data
sets that are either too large or too rarely used to be reliably found in
local memory caches or local cache servers. Due to the enormous disparity
between processor cycle times and disk and network access latencies, these
applications waste a large fraction of their time waiting for data; as we
look to the future, this problem is expected to become even worse. To
overcome this problem, this research will combine aggressive storage
prefetching with intelligent cache management to fully hide the data access
latency while using memory resources intelligently. Program transformation
tools and runtime support systems will be developed that collaborate to
customize memory hierarchy and distributed cache resource management for
data-intensive applications. With application-specific guidance of memory,
network and disk resources, it is possible to decrease execution times by
orders of magnitude. The ultimate goal of the research is for programs to
never waste time waiting for data, and for programmers to never waste their
valuable programming time thinking about this performance problem.